General Purpose Methods for Unsupervised Exploration of Large Datasets

With the enormous stream of electronic data being continually generated,
it is imperative to use unsupervised methods to organize and explore
the data. The enormous quantity of data precludes the use of supervised
methods. The goal of this project is to develop unsupervised methods
capable of organizing and annotating large datasets of unknown structure,
facilitating further exploration and analysis of the data.

With the recent advent of general purpose, scalable, unsupervised
clustering methods such as Principal Direction Divisive Partitioning
(PDDP), whole new vistas open up in the uses and applications of
unsupervised methods. This particular method yields additional
by-products for free: a hierarchical structure, and identification of
the most distinctive attributes. These by-products are just the items
needed to impose a structure on a dataset and annotate the computed
structure at various levels of detail.

This naturally leads to this project: to develop scalable general
purpose clustering methods, to extract the information needed to
annotate the datasets so users can effectively navigate through the
data, and to perform the associated statistical and theoretical analyses.
The methods will be validated on a wide variety of domains, including the
WWW, specialized legal and/or medical databases, astronomical catalogs,
and genomics.